Design-Oriented Analysis and Practical Applications of Log-Domain Filtering

Even in today's increasingly digital world, analog continuous time circuits are needed in many applications. Current approaches to analog processing are running up against fundamental limitations. Log-domain filtering is a relatively new approach that offers wide dynamic range and excellent high-frequency response using simple, low-voltage circuits. Log-domain filters exploit the translinear current-voltage characteristics of bipolar transistors or weak-inversion MOSFETS to achieve overall linearity. The basic signal processing elements can be quite simple in form and their high-frequency performance can be excellent while distortion can be low because most of the transistor non-linearities are cancelled within the circuit. This research has three major thrusts: The first thrust is toward fundamental, design-oriented analysis of log-domain circuits. Design methodologies and fundamental understanding of the limitations of log-domain filters are in an early stage. Fundamental analyses allow development of figures of merit for evaluating and comparing log-domain circuits. The second thrust focuses on developing new log-domain circuit topologies. Based on an understanding of fundamental limitations, new circuits are being designed to improve performance. The third thrust is toward applications of log-domain circuits. Integrated circuits are being built and tested to demonstrate the usefulness of log-domain circuits in practical applications. Initial focus is on two application areas: low-voltage wireless communications, to exploit the performance potential of log- domain circuits and adaptive and biologically inspired circuits, to build on their fundamental simplicity.